Schools of the Pacific Climate Experiment-Program Enhancement

Postawko 9723927 This project continues work begun by Susan Postawko and Mark Morissey in 1994 with funding from the East Asia and Pacific Program. The simple goal of the project is to gather rainfall data on the ground from multiple sites throughout the Pacific island nations and territories. This unique data is made available to meteorologists and other interested parties over the Worlwide Web and through standard databases. It has been used in several major studies of global climate including NASA WETNET's Precipitation Intercomparison Programs I and II. Nearly all the data is collected by students in all levels of education across the Pacific. The program started with 25 participating schools and has grown to 145 schools at the present time representing approximately 30% of the total number of Pacific Island sites now reporting daily rainfall. Therefore, this project is much more than a data-gathering exercise. It is a major pan-Pacific educational endeavor which gives students across the Pacific an opportunity to participate in scientific research.